Workshop: Support of Graduate Students and Postdoctoral Researchers in the Sciences and Engineering, June 17-18, 2004

The American Association for the Advancement of Science (AAAS) proposes to hold a
workshop addressing the issues surrounding graduate student and postdoctoral support. This
event is part of a series of events co-sponsored by the National Science Foundation (NSF), the
Council of Graduate Schools (CGS), and the National Institutes of Health (NIH) designed to
examine and improve knowledge and practice in graduate education and research training.

Intellectual Merit
There are many who believe that the US is facing a critical shortage of citizens trained in
science, technology, engineering and mathematics (STEM) fields. This workshop will address
this issue by examining the factors that lead students to pursue graduate education and
postdoctoral training in STEM areas, focusing especially on the critical role that financial
support and benefits play in preparing a technological workforce.

AAAS will work cooperatively with the NSF Division of Graduate Education to organize a two-
day workshop to be held at AAAS headquarters in Washington, DC on June 17-18, 2004. The
workshop will consider the role and impact of student financial support in promoting the
production of more and better prepared US citizens in STEM fields. The conference will
examine the interplay between components of graduates student support such as mode, duration
and amount of stipend, as well as health care and other benefits. These elements will be
considered in relationship to indicators of student progress such as completion rate, time to
degree and time to first position. The meeting will also explore the economic impacts of
graduate and postdoctoral compensation on the research enterprise and on the domestic scientific
labor market overall.

The meeting will involve one hundred participants including graduate students; postdoctoral
researchers; STEM faculty and deans; labor economists; and representatives from industry and
research funding organizations. It will be held at AAAS Headquarters in downtown
Washington, DC, for convenient access. The information shared at this meeting, combined with
the policy recommendations developed, will significantly advance knowledge and practice in
graduate education. A crucial group of stakeholders will be empowered to create and
disseminate a set of best practices surrounding mode, duration and amount of student support.

Broader Impacts
The outcome of the workshop will be a set of best-practices and identification of knowledge gaps
to be addressed by future research on these topics. It will also help to build a community of
researchers, educators, and stakeholders who will maintain an ongoing dialogue in this critical
area. AAAS will work with NSF to disseminate these findings broadly.

This meeting will advance our understanding of how the many facets of graduate student support
contribute to creating the US STEM workforce, and it will promote the leadership of a more
knowledgeable and invested set of stakeholders. The best practices guidelines developed at this
meeting will be disseminated widely by the meeting organizers and participants, and will lead to
infrastructure changes that will enhance graduate education nationwide. The meeting will also
address how changes in mode and amount of support may differentially affect underrepresented
groups along racial, gender or socioeconomic lines.